Innovative Designs, Materials, and Manufacturing of Heat Exchangers 1 1/2 Day Workshop Proposed to NSF for Co-sponsorship

The objectives of this by Invitation Only workshop are to exchange information on the current status of world developments in Innovative Design, Materials, and Manufacturing for next generation heat/mass exchangers. The enrollment is limited to 50 to facilitate and close discussion and interation among participants, in a focused setting which may not be possible in other conventional conferences and workshops.

The proposed workshop is hosted by and will be held ay the University of Maryland ? College Park, on September 24-25, 2015. The requested fund from NSF will be
used to offset travel assistance cost for select industrial consultants and professors who attend this workshop and will be used towards workshop proceedings and room lease, etc.